Determining Primary Production in Individual Phytoplankton Cells

The majority of the photosynthesis in the ocean is carried out by microscopic marine organisms, the phytoplankton. A major question facing today's biological oceanographers is to assess the primary production potential of individual phytoplankton cells in mixed species assemblages in the ocean. Dr. Perry has chosen the molecular biological approach to this problem. She will quantify the concentration of key components in the enzymatic and light harvesting photosynthetic apparatus by intracellular labelling of these components with fluorescent antibodies and by subsequent analysis of the cells with flow cytometry, a technique which allows each individual cell to be scanned. This will allow for the characterization of an individual's contribution to the productivity of a population.